Chemical Synthesis in the Barium-Titanate System: Controlling the Chemical to Ceramic Transition

This proposal outlined a program which will introduce chemical synthesis methods in the Ba-Ti-O system. It will use an array of characterization techniques to provide a molecular understanding of the formation of Ba-Ti-O ceramics. It will also correlate the microstructure and properties of sintered ceramic specimens prepared from these powders. Effects of chemical composition, substitution, doping and impurities on the nucleation and growth behavior of these precursors during decomposition will be examined using thermal analysis techniques (DTA, TG, and EGA) and hot-stage x-ray diffraction. Paralle; electron energy loss spectroscopy (PEELS) will correlate these changes with small variations in chemical structure. Electron diffraction will be used to identify emerging, and possibly transient, phases. Optical spectroscopy will investigate the mechanism of ceramic formation from the chemical matrix. Low to very high frequency dielectric measurements will monitor the properties and microstructures of the ceramics. %%%% This project proposes to investigate the influence of the chemical state on final products through a novel combination of analytical techniques situated at the interface boundaries between chemistry and ceramics. Chemical and structural parameters will be evaluated in the compounds existing in-between the chemical and the ceramic states. An array of techniques are used to investigate this problem. This project can provide a molecular understanding of the ceramic formation. The Ba-Ti-O system is selected for study. Information from this project can reveal a great deal about the formation mechanisms. This type of knowledge will lead directly to improvements in the processing as well as in the new compounds.